Mathematical Sciences: Geometric Structures on Low Dimentional Manifolds

The research entails the geometry and topology of hyperbolic structures on 3-dimensional manifolds. In particular, metrics of non-positive curvature will be studied and the fundamental groups of these manifolds will be related to those of other classes of manifolds. The techniques exploited may have potential applications to other branches of mathematics.